Presidential Faculty Fellow

This award is one of the first group of Presidential faculty Fellows. The awardee will continue his research in theoretical nuclear physics, including studies in four topics: *transport theory for nuclear reactions; *nuclear phase transitions; *particle production in heavy ion collisions; *topics in mathematical physics.